Support of an International Conference on EEZ Resources: Technology Assesment

The University of Hawaii College of Engineering, at the request of the International Ocean Technology Congress (IOTC), is hosting an international conference of EEZ Resources: Technology Assessment in Honolulu, Hawaii on January 22-26, 1989. Ocean technology experts from around the world will meet to exchange ideas and information related to the exclusive economic zones of their countries. The empahsis will be on the assessment of the technology available to determine the initial condition of the EEZ and what are the problems involved in utilization of these resources.